Cognitive Neural Network Models that Bridge Levels of Abstraction

IRI-9415446 Cooper, Paul Northwestern University $80,000 - 12 mos. Cognitive Neural Network Models that Bridge Levels of Abstraction This is the first year funding of a three year continuing award on neural net models of cognition. Such models must provide architectures capable both of representing a given situation at different levels of abstraction and of supporting the flow of information between these levels. This project explores cognitive neural models that can bridge levels of abstraction, by developing a connectionist model of the well- known cognitive phenomenon of illusory contour perception (perception of non-existent contour lines at boundaries of a non- existent occluding object inferred from context). The model of illusory contour perception will allow top-down feedback from the perception of an occluding object to cause the perception of illusory contrast along the object's boundary. The model will explicitly incorporate a representational hierarchy of visual elements at multiple levels of abstraction. Simulation results using the model will show how feedforward activation leads to the perception of the occluded object at a high level of abstraction, and how feedback activates the units that represent the illusory contrast. The architecture of the model suggests a testable prediction about human perception of subjective contours, providing clues to certain mysteries of visual perception.